EMSW21-RTG: Training, Mentoring & Research in the Mathematics of Stochastic Analysis and Applications

This project is concerned with the research and teaching of the
mathematics of stochastic analysis, motivated by a number of timely
application areas. These applications, among them financial
mathematics, telecommunications, risk measure analysis, dynamical
queuing systems, and green-house gas emissions, are key to attracting
young talent towards stochastic analysis, which is an area that has
been rewarded with a number of major mathematical prizes in the past
two years. Some of the technical issues arising from the problems
studied here are: analysis of very heavy tailed distributions;
stochastic partial differential equations; multiscale asymptotic
approximations for jump processes; convex analysis for set-valued
functions; limit theorems for time-changed Poisson process models of
Markovian service networks. Tools of stochastic analysis are becoming
crucial for a core applied mathematics training, and this RTG aims to
train a number of the future trainers, as well as practitioners of the
skills, with rigorous foundations in this area.

Expertise in probability, the mathematics of uncertainty, is in great
demand in the US: university mathematics departments and applied
mathematics programs, operation and risk management, financial
regulatory and public policy offices, bio-engineering, and the
telecommunications industry. The initiatives of this project are
designed to attract talented US students to graduate degrees, as well
as postdoc positions and beyond. The RTG's educational emphasis on
mathematical methodology means that we will train people with broadly
applicable technical skills that may later be applied in vastly
different contexts as demands and trends in the workplace evolve. In
financial markets, for example, poor regulation and a lack of
understanding of the risks involved, have contributed to wide-ranging
crises, such as that triggered by the subprime mortgage debacle in
Summer 2007, threatening more and more retirement and endowment funds
and public savings every day. We need to stop this run-away train. An
ultimate goal of this project is to contribute to this effort by
developing new tools and strategies to educate the future scientists,
policy makers and regulators, and potential investors about the risks
and the mathematical language for their description and control. By
focusing on forms of risk which have traditionally remained off the
radar screen of educators and practitioners, e.g. operational risk, we
will raise the level of awareness and make sound controls possible.